Mechanism of Transcription Termination Protein Rho

Escherichia coli transcription termination protein rho employs an RNA-dependent ATPase activity to effect transcript release from paused transcription complexes. The PI is studying the molecular mechanism of the rho ATPase reaction using enzymological, biochemical, and molecular biological techniques, in order to understand its role in transcription termination . The knowledge gained will prove useful to the broader question of RNA-protein interactions and to the understanding of energy-transducing ATPases. In the present proposal, studies of rho ATPase activity are continued, and an investigation of rho-RNA interactions is begun. RHO is thought to use the energy of ATP hydrolysis to move with respect to the RNA chain of transcription complexes. Rho binds to this RNA and releases it from RNA polymerase and the DNA template. The postulated mechanism for such movement is the ATP hydrolysis- dependent binding and release of the nascent RNA. From earlier work on rho-ATP interactions it is predicted that RNA should bind to rho ATP complexes much more tightly than to rho ADP.Pi complexes, and an experiment had been designed to test this prediction. To test whether rho uses the energy of ATP hydrolysis to travel with respect to RNA, Dr. Stitt and co- workers have developed a system to measure the amount of ATP hydrolyzed per RNA chain released. This system is being used in a normal rho-dependent release; it will also be employed in a system in which an insert has been made between the rho binding site and the end of the transcript. If rho used ATP energy to travel along RNA, it should use more ATP in the system where it has to travel further. The sites on rho of its interaction with RNA have only vaguely been localized; RNA crosslinking experiments will be used to better define them. Rho shows a requirement for RNA to activate its ATPase activity, although the DNA poly(dC) binds as well to rho as the RNA poly(C). Mixed RNA-DNA oligonucleotides of defined sequence will be used to identify the locations on RNA where the 2'OH is critical for rho ATPase activation.